Ecosystems Studies at the H.J. Andrews Experimental Forest

This award provides funds to the Biology Department at Oregon State to continue a successful 10-week program that will provide 10 undergraduates in biological sciences with research experiences in ecosystem studies at the Andrews Experimental Forest. This experimental forest is the site for several interdisciplinary projects, including the NSF sponsored Long-Term Ecological Research Program. Students will learn and develop skills as they interact and work closely with scientists from several discipline on individual projects within larger established research programs. To foster student development and monitor what careers they pursue after they complete the program, a 4-phase program is planned: an overview phase which explains integrated ecosystem studies, an apprenticeship phase to develop student skills, a personal research phase, and an evaluation and follow-up phase. According to their interests, students will join a collaborating scientist for the second and third phases. The principal investigator of this award will coordinate the program, organize the overview phase, field trips, and seminars, integrating the students and collaborating scientists, facilitate students' progress toward independent scientific research, and monitor the evaluation and follow-up phase so that students can be tracked. Students will be housed at the field station with other researchers, an arrangement that encourages after hours discussions and helps break barriers between disciplines. The project will place promising students at a scenic research site with an interdisciplinary team of scientists to produce good science and develop an enthusiasm for biological research.